4D-Var Assimilation of Radar, Satellite, and Targeted in situ Observations for Hurricane Prediction Near Landfall

This research will assess the individual and combined effects of the use of radar, satellite and targeted in situ data on forecasts of hurricanes near landfall. Specifically, the research will involve: 1) development of methodology to assimilate airborne Doppler radar observations collected during field experiments and to assess the effect on the prediction of hurricane intensity, inner core structure, wind, and precipitation, 2) assessment of the effect of satellite data on the prediction of track and intensity changes, 3) study of the possible targeting strategy for the initialization of hurricane prediction which combines "targeted" in situ observations (aircraft dropsondes and ship measurements, and 4) model study of the dynamics of the eye region and the processes contributing to hurricane motion and its intensification and weakening.